A Study of "Seeing and Thinking Mathematically" Units with Linguistically- and Culturally-Diverse Students

9453671 Kleiman This project focuses on two current issues in American education: reform in mathematics education led by the NCTM Standards and the need to serve a linguistically and culturally diverse (LCD) student population. The implementation of the unit Languate of Numbers developed by EDC under NSF award number ESI-9054677 is evaluated in schools served by the California Middle School Mathematics Renaissance of the California State Systemic Initiative. This unit, designed for sixth grade, includes material on number representational systems, multiple representations of numbers, and number representational devices. In addition, it focuses on investigation, invention, symbolization, and communicating mathematically. The evaluation consists of classroom observations, individual and focus group interviews with teachers, students, administrators and parents as well as review of student work. The outcome is general principles for the design and implementation of instructional materials for LCD students and guidance for teachers implementing similar instructional materials.